Genetic and Molecular Studies of the Tad Transposon

The long term goals of this project are to determine the structure, the mechanism of transposition, and the possible regulatory function of Tad, a LINE-like transposable element from Neurospora crassa. Tad is a 7 kilobase transposable found in multiple copies in the Ivory Coast strain, Adiopodoume, and its derivatives, but not in other strains (over 400 tested). The Tad element has no terminal repeats, but it has internal regions of homology with both the gag and pol genes of retroviruses and retrotransposons. The sequence of one Tad elements, which proved to be defective, was determined. A functional Tad element has been cloned. We will determine the sequence of this functional element and compare the sequence to other elements as well as the nonfunctional element already sequenced. The location of the major promoters will be determined using gene fusion techniques. Cis-acting sequences important for transposition will be determine using engineering constructs. An intron will also be introduced to determine whether Tad transposes via and RNA intermediate as expected from its structure. The effects of an adjacent Tad element on the expression of the am gene will be addressed. Tad will also be tested for mutator function, reverse transcriptase activity, and what effects RIP has on this elements.